Design Projects for the Disabled

9320052 Krause The project would support new customized devices and computer software to aid persons with disabilities. The primary goal of the work is to provide a meaningful design experience for the engineering student that will directly aid a specific disabled individual. Some 20 projects are envisaged each year during a three year award. Typical projects are in the areas of Wheelchair Trainers for disabled children, Sonic Cane for the visually impaired, Loudness Level Indicator for the hearing impaired to learn the proper speaking level, Electronic Compass for the visually impaired, Light Activated Toys for children with limited hand capacities, Cooking Timer for the deaf, Rocking Wheelchair, and a People Presence detector for the deaf. Results of the design projects will be published annually in the report National Science Foundation Engineering Senior Design Projects to Aid the Disabled. ***